ITR: 3D Free Form Models for the Representation, Manipulation, and Recovery of Shape, with Applications to Archaeology and Virtual Sculpting

The problems of 3D shape representation, analysis, manipulation,
and estimation from unstructured sensor data are central not only
to computer vision, but are also of key significance to geometric
modeling, computer graphics, computational geometry, medical imaging,
surveillance, among others. The goal of this proposal is to investigate
approaches to these problems in the context of tackling certain
key problems in archaeology. This area of application offers
the following three distinct advantages: (i) it is a rich source
of free-form shapes, e.g., pottery sherds, marble plates and reliefs,
sculpture, column capitals, building facades, etc., which are
easily accessible, in contrast to 3D free-form shapes obtained
from medical images which require expert segmentation; this data
is also richer and more variable than data available in a typical
manufacturing environ-ment; (ii) the problems are of a generic
nature and the proposed approaches can be applied to a variety
of other domains; (iii) this application area forms a key bridge
between the Physical Sciences and the Humanities.